Experimental Nuclear Physics Research Program

9513924 Chant Accelerator based research in intermediate energy nuclear physics of a University of Maryland group will be supported primarily at CEBAF utilizing electromagnetic probes. There will be a major contribution to the commissioning of CEBAF as well as initiation of new experiments with CEBAF. The research will include a measurement of the polarization of the recoiling deuteron from e- d scattering and studies of parity violation in the scattering of polarized electrons from helium nuclei. Specialized detectors will be developed for use in these and other experiments at CEBAF. Continuing researah using hadron probes such as pion- induced reaction studies on a polarized Li target at IUCF and (p,pN) experiments at TRIUMF will be carried out by the group ***